A Proposal for Construction of a Decay Channel for the NuTeV at Fermilab

9601125 Conrad This Career Advancement Award proposal would add a decay channel to the existing NuTeV detector at Fermilab, which would make the upgraded detector sensitive to the decays of postulated neutral heavy leptons. Support is requested for equipment only. ***